Purification and Characterization of a Novel Isoprenylated Protein

9316131 Faust Mevalonic acid is required for the synthesis of several essential components (e.g. cholesterol, dolichol, and ubiquinone) that function in a wide variety of mammalian cell processes. Adequate levels of Mevalonic acid are required for sustained cell growth. In addition to the need for cell growth, however, an unknown Isoprenoid metabolite of mevalonic acid is required acutely for DNA replication in mammalian cells. The long term goals of this research are to identify and elucidate the mechanisms by which isoprenoids regulate cell proliferation. Preliminary experiments identified a new, cell cycle-regulated protein that may contain a novel isoprenoid modification, isopentenyladenine. The expression of this unique protein (named i6A26) correlates with isoprenoid- mediated regulation of DNA synthesis. Interestingly, isopentenyladenine, which is derived from mevalonic acid, is a potent growth hormone in plants, a member of the group of plant hormones known as cytokinins. The function of isopentenyladenine in mammalian cells is unknown. The goals of this project are: 1) to purify i6A26 using conventional biochemical techniques, obtain partial amino acid sequence of the protein, and to compare the amino acid sequence of i6A26 with known protein which may help to identify this unique, cell cycle-regulated protein. 2) to prepare antibodies that recognize peptide domains in i6A26 and immunoprecipitate i6A26. 3) to perform precursor incorporation experiments using radiolabeled mevalonic acid and adenine to characterize the modification in i6A26. Reagents produced and the results obtained will be used in future studies to address the mechanism by which i6A26 expression is regulated and the role of this unique protein in controlling cell proliferation. %%% Isopentenyladenine is a chemical variant of one of the nucleotide bases that make up nucleic acids. This modified base is found in transfer RNAs isolated from a wide variety of cells. In plants, isopentenyladenine is also a member of an important class of hormones known as cytokinins. Cytokinins regulate cell division, gene expression, and differentiation in various plant tissues. In mammalian cells, an isoprenoid molecule derived from the same metabolic precursor as the isopentenyl portion of the plant hormone is acutely required for transit of the cell cycle. The identity of this isoprenoid is unknown. Since isopentenyladenine affects cell division in plants it would be very interesting determine whether isopentenyladenine is involved in regulation of mammalian cell proliferation. In preliminary work, this laboratory has identified a cell cycle-regulated protein in mammalian cells that appears to contain isopentenyladenine. If this is borne out by further work, it would represent a previously unknown type of protein modification. It also may lead to clarification of the role of the required, but previously uncharacterized, isoprenoid molecule necessary for mammalian cell division. Since the exact mechanism of action of this chemical as a plant hormone is not yet understood the results of this research could also shed light on the mode of action of this important class of plant hormones. ***